Studies of Nuclear Reactions and Structure

This project on Studies of Nuclear Reactions and Structure will
support fundamental research in experimental nuclear physics and the
training of Ph.D. students for service to the nation in forefront
scientific research, education, homeland defense, national security,
and enhancing economic competitiveness. At the John D. Fox
Superconducting Accelerator Laboratory at Florida State University,
the new RESOLUT rare ion facility will allow the study of the
reactions and structure of nuclei far from stability which are
critical to astrophysics and the interpretation of observations made
by the new astronomical observatories. Our unique beams of 14C will
allow us to study how the most fundamental property of nuclear
structure, the shells, changes with increasing imbalance in the
proportion of neutrons to protons. The home laboratory is also an
ideal hands-on training ground for Ph.D. students

Other nuclear structure studies will be carried out at international
facilities such as Gammasphere at ATLAS and the National
Superconducting Accelerator Laboratory. Other components of our
research program include leading efforts at the Relativistic Heavy Ion
Collider to study a new form of matter that existed a fraction of a
second after the Big Bang and at CB-ELSA in Bonn, Germany to search
for previously unseen excited baryon resonances.